IDA/WG: Creating Career Opportunities for Female Economists

The goal of this project is to provide mechanisms which support female economists in the pursuit of academic retention and promotion. It is an effort of the American Economic Association's Committee on the Status of Women in the Economics Profession (CSWEP). CSWEP will develop and implement a two-day workshop at the Allied Social Science Association (ASSA) meeting to be held in Chicago, Illinois, January 3-5, 1998. Eight teams of five non-tenured faculty will be paired with eight tenured faculty. These teams will work through materials concerning successful grant writing and publishable research. All teams will develop action plans to support the likelihood of earning tenure at their respective institutions. In addition to increase the representation of women among senior faculty rank, this project provides the opportunity to test the effectiveness of a team approach to mentoring, as opposed to a one-to-one approach in the career advancement process.